How Does Animation Work? Eye-Movement Analysis of Dynamic Geovisualization Displays

How does animation work?
Eye-movement analyses of dynamic geovisualization displays.

As real-time three-dimensional landscape fly-throughs and interactive map
animations of various spatial diffusion processes become ubiquitous with
dissemination through the Internet, the key question that remains is how
effective the potential increase of information density in these highly
interactive visual forms really is for learning, knowledge construction,
and knowledge dissemination and education.

The main goal of this proposed project is to empirically evaluate the
effectiveness of interactive and dynamic geographic visualization displays
for knowledge discovery and knowledge construction. Based on a research
framework from cognitive science, and utilizing the eye-movement data
collection approach, a series of controlled animation experiments are
proposed. These empirical studies adhere to experimental design standards
in cognitive science, but are additionally grounded on a dynamic design
framework borrowed from cartography, computer graphics and cinematography,
to investigate how dynamic visual variables, and various levels of
interactivity affect people's knowledge construction processes from
dynamic displays as compared to static displays.

The outcome of this investigation will be a increased understanding of how
people use dynamic displays to explore dynamic geographic phenomena, and
how people make inferences from dynamic visualizations for knowledge
construction in a geographical context. A dynamic design framework will be
developed informed by the outcomes from the eye-movement studies. This
framework will include design guidelines for academics and practitioners
alike, both of whom employ dynamic graphic displays to educate, to do
research, and/or to communicate research results on dynamic spatial
phenomena.